Mathematical Problems in Fluid Dynamics

0101022
Constantin

Theoretical interest and experimental efforts concerning Lagrangian
particle analysis have been increasing in the last years. The proposed
research is to develop an Eulerian-Lagrangian approach initiated very
recently. A main object of study in this approach is a diffusive Lagrangian
path inverse that allows a natural formulation, including a viscous
analogue of the inviscid Cauchy formula. The solution is built using a
product expansion near the identity transformation. It is proposed to study
this construction and apply it to randomly forced flows. In addition, the
study of quenching of flames by strong random flows in turbulent
combustion is proposed.

Fluids and plasmas exhibit many active scales of motion, and are
notoriously difficult to compute and predict accurately. The reason is that
the equations describing them are not well understood. It is proposed to
study mathematically the processes of transport of momentum and heat
under extreme conditions